Holomorphic Spaces and Operator Theory

PI: Zhijian, Wu
Project Number: 0200587

ABSTRACT:

The core of this proposal is to systematically study certain
interactions between holomorphic function spaces and operator
theory. These holomorphic spaces include Dirichlet spaces,
potential capacity related scale space which covers Bloch space
and BMOA, and the analytic Morrey spaces. The operators are
multipliers, bilinear forms, such as Hankel operators and
Toeplitz operators, and commutators. The study involves the
following objects: the orthogonal projection, the point
evaluation operator, mean value operator, the differential
operator such as d-bar, Laplacian and Dirac operators, Clifford
analysis, atomic decomposition, approximation numbers, predual,
intermediate spaces, Carleson measures and potential capacity.
Techniques in harmonic analysis, complex analysis and operator
theory will bebe used and developed in this study.

Beside its own charm in pure mathematical research, the
interaction between holomorphic function spaces and operator
theory has many applications in several fields of applied
sciences. Automatic control, navigation and system design in
engineering are examples of the applications. Operator theory
has its roots in the rigorization of quantum mechanics and it
is now widely used in control theory.